Benthic 02 and Carbonate Fluxes: Microelectrodes

This study will investigate organic matter degradation and calcium carbonate dissolution at the sea floor with emphasis on examining the generality of the earlier results and improving the accuracy of the rate constant determination. The proposal consists of three main objectives: a field program, development of a pCO2 microprofiling device and a laborabory investigation. The field study will take place in the productive eastern equatorial Pacific. Profiler studies will be coordinated with benthic flux measurements by Dr. Richard Jahnke of Skidaway Institution of Oceanography. Development of remote pCO2 measurement capability is necessary to improve sensitivity in the determination of the dissolution rate constant. This approach will be to adapt a colorimetric fiber optic technology developed at the University of Washington and currently being used for low level ammonia measurements. The laboratory investigation is designed to test interpretations of the in-situ measurements by measuring the calcium carbonate dissolution flux while predicting it using microelectrode pH and pCO2 measurements.